Active Control of Transport in Molecular Assemblies

The ability to control molecular transport through membranes is a crucial aspect of the operation of biological systems. This research project, supported by the Analytical and Surface Chemistry Program, is designed to develop an understanding of the molecular level behavior of ultrathin organic membranes under the influence of electric fields. This understanding is the basis for the control of molecular transport across these membranes. Professor Paul Bohn and his students at the University of Illinois will use both optical fluorescence and standard ac impedance measurements to obtain this understanding. The optical waveguide methods developed by the Principal Investigator for the study of the properties of thin organic films will be applied to these measurements. The goal of the overall research program is to be able to design a molecular gate, operable by applying an electric signal. Transport across organic membranes is the basis for various aspects of molecular separation, gene regulation, process control schemes, and drug delivery in the body. In order to understand this process on a molecular level, a research project which probes the behavior of model organic thin films under the influence of an applied electric field is being pursued. Measurements of the optical properties and the electrochemical properties of these membranes will be carried out, and the information obtained used to develop designs for molecular gating devices.